Betatron X-ray Generation in the Multi-Petawatt Regime

This award supports an effort to enable better microelectronics manufacturing by understanding how high intensity lasers can make bright extreme ultraviolet and x-ray light. Light enables us to see the world around us, both with our eyes and through the use of tools such as microscopes. How small an object one can see depends on the color of the light used: blue light can see smaller objects than red light, and ultraviolet light can see smaller objects still. A portion of x-ray light known as extreme ultraviolet light (EUV), can see objects as small as molecules, and has wavelengths thousands of times smaller than visible light. EUV light is currently used to manufacture the smallest features in our most state-of-the-art computer chips. High brightness sources of extreme ultraviolet and x-ray light are very difficult and expensive to make, with the machines used by industry today costing more than a billion dollars each. This project aims to understand how extremely powerful lasers fired into gases can be used to make EUV and x-ray light. The bursts of light produced are extraordinarily fast and come from a point smaller than a speck of dust, making them well suited to act like a super-sharp camera for inspecting the tiny features inside materials and computer chips. The project will combine experiments and computer models to better understand, predict, and control the light's brightness and color, and new detectors will be built so that the light can be measured accurately. This effort may enable a cheaper and more practical tool for making the computer chips of the future, with students trained to enter the skilled workforce necessary to keep this technology moving forward.

This project will experimentally and numerically characterize the betatron x-ray emission generated from laser wakefield acceleration (LWFA), with particular emphasis on tuning the soft x-ray spectrum toward Beyond-EUV (BEUV) wavelengths relevant to next-generation semiconductor manufacturing. There are two main facets of this research: (1) to determine how the betatron spectrum, brightness, and effective undulator parameter scale with the plasma density and acceleration length in two-stage gas cells, and (2) to investigate the practicality of betatron radiation as a compact, point-like, few-femtosecond light source for BEUV metrology and material development. Experiments will be performed on Petawatt-class laser facilities such as the NSF ZEUS laser system, where a short, mixed-gas first stage will provide ionization injection and a longer pure-helium acceleration stage will enable the betatron oscillation to be controlled. The experiment will be numerically modeled using 2.5D particle-in-cell simulations with Bayesian optimization to efficiently map the strongly coupled, nonlinear parameter space, and complemented by particle-tracking post-processors to predict the radiated spectrum. By correlating the measured x-ray emission with the modeled plasma and electron phase-space conditions, the project will identify the conditions under which the spectrum can be tuned to peak at a desired wavelength, and perform single-shot proof-of-principle measurements to demonstrate the source's suitability for semiconductor metrology.